Mechatronics Education Workshop

Engineering - Mechanical (56)

This is a one-day workshop in Mechatronics Education to be held as part of the Mechatronics 2000 Conference in Atlanta, Georgia, in September of 2000. The purpose of the workshop is to bring mechatronics educators and scholars from around the world together to discuss and share their experiences on how to best teach mechatronics, how to design mechatronics laboratories and curricula, and how to integrate mechatronics research and teaching effectively. Part of the information disseminated will come from a previous NSF grant to the PI. Mechatronics scholars who are already attending the conference from the United States, Japan, and Europe will be available to serve as panelists and presenters at the workshop.